MGR Honorable Mention: Lyndon Mitnaul

This special award will give Lyndon Mitnaul additional flexibility in pursuing his graduate studies and research initiation in cellular and molecular biology. This award will strengthen minority research participation in this area.